5th International Conference on Numerical Grid Generation in Computational Fluid Dynamics & Related Fields (April 1,1996-April 5, 1996, Mississippi State University)

9528796 Soni The 5th International Conference on Numerical Grid Generation in Computational Fluid Dynamics and related Fields is organized by the National Science Foundation Engineering Research Center for Computational field Simulation and the Aerospace Engineering department both at Mississippi State University. This international interdisciplinary conference provides a joint forum where mathematicians, scientists, and engineers from academia, industry, and federal laboratories can communicate (exchange/assimilate) research ideas, new algorithmic and software developments, and applications involving grid generation strategies pertinent to a wide range of practical problems arising in Computational Field Simulation. the primary objective of the conference is to optimally fulfill the aforestated mission; but, at the same time to promote research and education in mathematical, computational, and engineering analysis of grid generation pertinent to Computational Field Simulations (CFS) and provide graduate students and young Ph. Ds an opportunity to present their work, meet researchers, and learn of recent developments in the interdisciplinary area of grid generation.